Characterization of Resistance Mechanisms to the Photosensitizing Compound Cercosporin

This project focuses on the mechanisms by which a group of fungal plant pathogens from the genus Cercospora, exhibit resistance to the photosensitizing toxin cercosporin that they produce. Cercosporin produces singlet oxygen when activated by light and is toxic to a wide variety of organisms, including mice, plants, bacteria and many fungi. However, Cercospora species produce high concentrations of this compound in the light and are unaffected by its presence. Published evidence suggests that the production of carotenoids and the ability of Cercospora fungi to reduce and detoxify the cercosporin molecule are the primary mechanisms of resistance to the toxin. This project tests the hypothesis for the involvement of carotenoids in cercosporin detoxification through the generation of a series of carotenoid- deficient mutants produced by gene disruption experiments. Mutants that are either sensitive to cercosporin or deficient in cercosporin-reducing ability will provide alternative means to test for possible mechanisms of detoxification. %%% Naturally-occurring toxins are usually without effect in the cells in which they are produced, yet they can be potent poisons in the cells of closely-related organisms. The cellular mechanisms of detoxification in toxin-producing organisms are thought to involve either the chemical modification that results in the inactivation of the toxin or the compartmentalization of the active toxin molecules away from targets elsewhere in the cell. The chemical basis for cercosporin toxicity is understood and the inactivation of cercosporin through its chemical reduction is thoroughly reasonable. This project provides a straightforward test of the involvement of carotenoids in the reduction of this toxin and will contribute to our understanding of detoxification in a variety of other organisms.